Mathematical Sciences: Research in Random Matrices and Spectral Asymptotics

Widom DMS-9424292 Widom has shown that there are differential equations associated with important random matrix models, and has used this fact to obtain explicit expressions for various quantities arising in the theory. He will continue this investigation to determine the extent to which the results apply to classes of models satisfying some common conditions. One class of deterministic problems deals with the asymptotics of the eigenvalues of finite Toeplitz matrices and their analogues. Each of these has an associated "symbol," and one expects to relate the distribution of eigenvalues to the values of the symbol. This proposal concerns the applications of operator theory to random matrix models. In random matrix theory fundamental quantities that arise naturally are often related to determinants of certain operators. The asymptotic behavior of these determinants is of independent interest in operator theory.